Travel Support for the 58th Session of the International Statistical Institute, August 2011, Dublin, Ireland

The American Statistical Association (ASA) will use this grant for 20 United States participants to attend the 58th Session of the International Statistical Institute (ISI) in Dublin, Ireland from August 21-26, 2011. The ISI meeting includes the meetings of the Bernoulli Society, International Association for Official Statistics (IAOS), International Association for Statistical Computing (IASC), International Association of Survey Statisticians (IASS), and the International Association for Statistical Education (IASE). Thus it is an umbrella meeting with sessions of interest for thousands of statisticians. The travel grant will provide support to defray transportation costs for individuals selected from institutions and non-profit associations. An emphasis of the award is to encourage and provide the opportunity for younger statisticians to participate in the meeting. Participants will be notified of the availability of the travel grant through Amstat News, a membership publication of the ASA, and on the ASA Home Page on the Internet. Notices will be provided to university and college statistics and mathematics departments to encourage younger statisticians to apply for the travel grant. A review and selection committee will be established to review the applications and select grantees. The committee will be comprised of three or more ASA members and will convene at the ASA office in Alexandria, Virginia. Special consideration will be given to statisticians who have recently received their Ph.D.?s and to women and minorities.

The American Statistical Association (ASA) will use this grant for 20 United States participants to attend the 58th Session of the International Statistical Institute (ISI) in Dublin, Ireland from August 21-26, 2011. The ISI meeting includes the meetings of the Bernoulli Society, International Association for Official Statistics (IAOS), International Association for Statistical Computing (IASC), International Association of Survey Statisticians (IASS), and the International Association for Statistical Education (IASE). Thus it is an umbrella meeting with sessions of interest for thousands of statisticians. The travel grant will provide support to defray transportation costs for individuals selected from institutions and non-profit associations. An emphasis of the award is to encourage and provide the opportunity for younger statisticians to participate in the meeting. Participants will be notified of the availability of the travel grant through Amstat News, a membership publication of the ASA, and on the ASA Home Page on the Internet. Notices will be provided to university and college statistics and mathematics departments to encourage younger statisticians to apply for the travel grant. A review and selection committee will be established to review the applications and select grantees. The committee will be comprised of three or more ASA members and will convene at the ASA office in Alexandria, Virginia. Special consideration will be given to statisticians who have recently received their Ph.D.?s and to women and minorities.